Elementary, Secondary, and Informal Education: Revision of the "Mathematics in Context" Materials

Staff at the University of Wisconsin are developing the next version of the middle school instructional program, "Mathematics in Context." Materials are also developed for teachers, administrators and parents. The work is done is in collaboration with the Freudenthal Institute at the University of Utrecht, the Netherlands and the Encyclopedia Britannica. Some units will receive only minor changes and corrections and others will be completely revised. Among the more significant changes are: streamlining the fifth-grade units to facilitate the transition from elementary school reform materials; reducing the number of units at each grade level to facilitate more complete coverage; and the development of technology-based project units that could be used by groups of students outside regular class time. The revisions are based on reviews by experts and the experience of use in classrooms.